Ship Operations

The University of Miami, Rosenstiel School of Marine and Atmospheric Sciences will operate two research vessels: R/V ISELIN, a 170' general oceanographic vessel constructed with NSF funds in 1971; and R/V CALANUS, a 63' research vessel constructed by the NSF in 1970. The ISELIN is capable of ocean-going operations and operates primarily in the North Atlantic and South Atlantic. The CALANUS is intended for near-shore coastal oceanography in shallow waters. These vessels are part of a fleet used by the National Science Foundation to support oceanographic research projects. Most oceanographic research projects require highly specialized equipment and extensive support from a ship's crew members. An increasing number of research projects require equipment that must be permanently installed on a ship and for which the ship must be specifically designed. Such equipment also requires highly trained crew members for maintenance and operation. These vessels do not operate in the same manner as general cargo or fishing vessels, and therefore, NSF supports the operation of a variety of vessels specifically dedicated to oceanographic research. These vessels are operated by universities and research institutions around the country.